Promoting East-West Exchange on Scientific Freedom and Responsibility

At this time, as a result of political and economic changes, scientists and engineers in Eastern Europe confront new issues of scientific freedom and responsibility. The initiation of East- West exchanges to explore these issues promises intellectual and practical benefits to all parties. This project is designed as a planning effort; it will initiate such exchange and lead to further exchanges in workshops involving scientists, engineers, and other specialists from the U.S. and Eastern Europe. In this planning effort, a U.S. delegation composed of project staff and three Advisory Committee members will travel to Eastern Europe to meet with counterparts, four of whom have been chosen to be members of the Advisory Committee. The trip will be preceded by a careful process of preparation to develop a framework and agenda for discussion. This process will generate a background paper with review comments by four academic specialists to be circulated for feedback from the Advisory Committee members prior to the trip. The aim is to ensure not only that cooperative ties are formed by that knowledge useful for further research and for policy is generated. The institutional resources of the American Association for the Advancement of Science have already been used to identify and secure the commitment of appropriate key people in Eastern Europe. These are very good institutional resources for carrying out this project effectively. The outcome is to be a detailed plan for workshops to follow. From this planning effort and the workshops, reports will be produced to reach appropriate audiences in the research and policy communities. The proposal is a modest request for support to enable a well selected group to oprepare for an undertake travel to initiate East-West exchanges with counterparts in Eastern Europe on issues of scientific freedom and responsibility. The principal investigators and project associates are well qualified. The Eastern European representatives have been carefully chosen. The institutional support is very good. The project plans are good and have been developed with requisites for academic research in mind. Support is highly recommended.